Research Experiences for Undergraduates in Chemistry at Texas A & M University

9322109 Hogg Texas A & M Dr. John L. Hogg and other members of the Chemistry Department of Texas A & M are being supported to continue a Research Experiences for Undergraduate (REU) site in Chemistry. For the period 1994-6, ten undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects cover the traditional areas of chemistry -analytical, inorganic, organic, physical and biochemistry. There will be a strong focus on women, minorities and handicapped drawn nationally from smaller schools that lack major research programs.